Instrumentation to Improve Undergraduate Laboratory and Field Studies in Organismic Biology

In the area of organismic biology, this department offers courses ranging from physiology to genetics to ecology. If students are to fully appreciate the scope of these topics, they must become actively engaged in laboratory and field studies using current techniques. The goal of this project is to incorporate an EGC controlled-environment chamber, a HACH spectrophotometer, a Sartorius top loading balance with computer interface capability (all for laboratory use), a HACH portable testing "laboratory" and a LICOR data logging system (for field use) into the department's instructional program. These instruments are significantly improving laboratory and field instruction in organismic biology, particularly in physiology and ecology, by allowing students to experience first-hand such concepts as the effects of temperature on physiological processes and on population growth rates, and the nature of nutrient dynamics in aquatic and terrestrial ecosystems. Students also benefit from seeing how up-to- date equipment and research techniques are applied to examining modern biological hypotheses. Courses at the introductory, intermediate and advanced levels are affected, as is the senior thesis research program. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.